PostDoctoral Research Fellowship

This award is made as part of the FY 2012 Mathematical Sciences Postdoctoral Research Fellowships Program. These fellowships support a research and training plan at a host institution in the mathematical sciences, including applications to other disciplines. The title of the research and training plan for this fellowship to Michael H. Cortez is "Understanding Eco-Coevolutionary Dynamics Through the Use and Development of Fast-Slow Dynamical Systems Theory." The host institution for the fellowship is Georgia Institute of Technology, and the sponsoring scientist is Dr. Joshua S. Weitz.